The Conference on Computers in Physics Instruction

This grant will provide partial support for a conference on the use of computers in teaching physics. The conference will be held at North Carolina State University, Raleigh, North Carolina, during the week 1-5 August 1988. Attendees will be teachers of physics, both pre- college and undergraduate. Topics will include teaching strategies using computers for classroom demonstrations and student activities, computer-assisted instruction including tutorials and simulations, microcomputer-based laboratories, hardware and interfacing, programming languages, and computational tools. In addition to the NSF funds, the conference will be supported by about twice the amount from other sources.